Huygens' Operators and Hadamard's Conjecture

ABSTRACT

A lacuna of a linear hyperbolic differential operator is a
domain inside the propagation cone where its fundamental
solution vanishes identically. The study of lacunas for general
hyperbolic equations was initiated by I.G.Petrovsky (1945).
Extending and clarifying his results, Atiyah, Bott and Garding
(1970-73) developed a profound and complete theory for hyperbolic
operators with constant coefficients. In contrast, much less is
known about lacunas for operators with variable coefficients.
The investigation of this classical problem with a view of
generalizing the Petrovsky-Atiyah-Bott-Garding theory is one of
the primary purposes of my project. In particular, the
efforts will be aimed at resolving the old question of
J.Hadamard on explicit determination of second order analytic
wave operators satisfying Huygens' principle on Minkowski
spaces. Some new conjectures and problems (mostly from Analysis
and Algebraic Geometry) arising in connection with the theory
of lacunas will be also explored.

The study of propagation of waves in continuous media is one of
the fundamental problems in Mathematical Physics with many
important applications in natural sciences and engineering.
Of special interest (both from practical and theoretical point of view)
is the question of when the waves may propagate without diffusion
to allow the possibility of transmitting `clean-cut' (sharp) signals.
Well-studied in homogeneous spaces this question remains largely open
in general. My project aims to develop new mathematical tools
and techniques to investigate this difficult problem in the case of
inhomogeneous and anisotropic media. The results sought are of fundamental
interest and significance in mathematical theory of wave propagation
and may have applications in related physical disciplines including the
theory of electromagnetic and acoustic waves, space communication
technologies, magnetohydrodynamics, crystal optics, etc.